Terahertz Photonics

The primary aim of this proposal is the development of diffractive photonic
components for the terahertz spectral range, and the exploration of terahertz
pulse propagation in strongly diffractive media. One primary aim of this
proposal is to develop a range of new and useful optical components specifically
designed for the far infrared, or terahertz, spectral range, based on the
concepts of photonic crystals. Researchers have made tremendous strides in the
use of periodically diffractive materials for optical components, with examples
ranging from fiber Bragg gratings to colloidal crystal notch filters. Such
systems could also be useful as waveguides, filters, tunable dispersive optics,
and as components for wavelength division multiplexing (WDM). However, these
ideas have rarely been implemented at terahertz frequencies, a portion of the
spectrum with increasing technological importance. Another important aspect of
the proposed research involves the propagation of THz radiation in strongly
scattering media. This area of research has been of substantial interest in
recent years, motivated by the prospect of achieving localization of
electromagnetic waves. Interestingly, although a clear demonstration of light
localization is quite difficult in the optical regime, this research has led to
the development of techniques for imaging in turbid media. Since many of the
expected applications of THz imaging involve turbid or scattering media, it will
be valuable to extend these imaging studies to the THz regime